Automated Data Collection in the Chemistry Laboratory

The project is incorporating 12 Calculator-Based Laboratory (CBL) units and 3 MacIntosh computers into the General, Introductory, and Organic Chemistry Laboratory curricula. The CBL is an automatic data collection device from Texas Instruments. The device allows automated collection and storage of data in a laboratory setting. Automated data collection and computer-aided report preparation facilitate the mental connection between graphed data and physical activity, allowing students to focus on the trends and implications of data, rather than its collection, and acquainting the students uith technology currently used in working laboratories. The successes of the project will be shared with the Science Education community through workshops, presentations at professional meetings, and journal publications.